Development of Web-Based Real Time Virtual Model Based Simulation Laboratory for Soil-Structure Interaction Problems

The project develops a Web-based virtual model-based simulation laboratory (VMBSL) module with graphical and animation capabilities using the techniques of finite element method (FEM) to study the behavior of steel building frames subjected to static loads (gravity, wind, etc.), including their respective concrete foundation and foundation soil models, for implementation in structural engineering courses. The objective is to couple structural and geotechnical courses in civil engineering curriculums by integrating
the true behavior of frame structures with soil and foundation properties that support them. It also addresses the issue of structural systems from grounds up to delineate the true behavior of the entire structure.

The Web-based VMBSL and animation modules are incorporated into two undergraduate courses, namely structural analysis and steel design. The VMBSL tools developed in this project provide examples to demonstrate how the three-dimensional model of actual beam-to-column and column-to-foundation connections, concrete foundation, and soil properties effect the lateral sway and member forces in the structural systems as compared with the idealized two-dimensional models. The modules promote an environment for interactive-learning, virtual environment, team-based projects, and lifelong learning experiences.